Japan STA Program: Laser Microprobe Investigation of Calc- Alkaline Volcanism

This award will provide supplementary support to enable Dr. Don Elsenheimer of the University of Wisconsin to conduct collaborative research with Dr. Yukihiro Matsuhisa for 24 months at the Geological Survey of Japan in Tsukuba, Japan. They will utilize laser microprobe techniques which Elsenheimer developed to analyze the hydrothermal alteration and mineralization associated with ancient and modern calc-alkaline volcanism. Hydrothermal fluids are always chemically altering the earth's crust and are responsible for many types of economic mineralization. The recent development of a new ion and laser microprobe technique now enables scientists to conduct detailed micro-analytical studies necessary to determine quantities of isotope mineralization and to decipher the histories of these complex hydrothermal systems. Utilizing Elsenheimer's in situ laser oxygen isotope analysis techniques, the team will examine rock samples recovered from active seafloor hydrothermal fields in the back-arc basin of the Okinawa Trench and the North Fiji Basin. Dr. Matsuhisa's expertise on isotope geochemistry of hydrothermal mineralization, as well as the laser microprobe facility and rock samples at the Geological Survey of Japan, complement Dr. Elsenheimer's experience with the laser microprobe and will facilitate the research on fluid/rock interactions in the earth's crust.